Symmetry and Commensurability

Abstract

Award: DMS-0805908
Principal Investigator: Genevieve S. Walsh

Two n-manifolds are commensurable if they have homeomorphic
finite-sheeted covers. This notion is particularly useful for
3-manifolds. For 3-manifolds which admit a geometry,
commensurability respects this geometry. In light of the recent
proof of geometrization for 3-manifolds, classification into
commensurability classes is a refinement of the classification of
3-manifolds by which geometry they admit. This applies to
3-manifolds which have been decomposed along 2-spheres and
2-tori. Questions concerning virtual properties of
$3$-manifolds, such as if a 3-manifold is virtually Haken or
virtually fibered, are also questions about its commensurability
class. Commensurability also respects certain number-theoretic
properties of 3-manifolds. A classification of hyperbolic
3-manifolds up to commensurability would be very useful for the
field. A first step towards understanding commensurability
classes of hyperbolic 3-manifolds is understanding
commensurability classes of hyperbolic knot complements. The PI
proposes to work on the conjecture that there are at most 3
hyperbolic knot complements in a given commensurability class,
and to understand how these commensurabilities can
occur. Commensurability is also a useful equivalence relation on
hyperbolic surfaces, with the definition that two hyperbolic
2-manifolds are commensurable if they have isometric
finite-sheeted covers. The PI proposes to further develop this
theory, in particular to understand commensurability classes of
surfaces with large symmetry groups.

3-manifolds are spaces which locally look like a 3-dimensional
ball. In particular, our universe is a 3-manifold and we do not
know which one it is. A deeper understanding of
commensurabilities amongst 3-manifolds would significantly refine
geometrization for 3-manifolds. Knot complements are a naturally
occurring class of 3-manifolds, and thus good candidates for
study. 2-manifolds, or surfaces, are spaces which locally look
like a 2-dimensional disc. Hyperbolic surfaces are the most
common type of surface and are used in an extremely wide variety
of scientific contexts. The study of symmetry and
commensurability is very useful for these surfaces. The PI
regularly speaks on her work to diverse audiences. Any results
from this research will be described in research seminars, posted
on the arXiv, and broadly distributed.